A Set Theory for Functional Programming Languages

An approach to integrating set theory with functional programming languages is to be investigated. This includes both the design of a class of logics and their application in a system supporting the development of mechanically verified software. It is hoped that ideas from set theory can make constructive type theories more practical, flexible, expressive and widely applicable.